Fluidic Vortex Amplifier for Environmental Control

Vortex chambers can be used to control flow resistance through a device. Such "vortex amplifier" devices can be used to control the pressure of isolated enclosures, such as clean rooms, and glove boxes. This research proposes to obtain the necessary data based on vortex-amplifier dynamic response and design technology for ventilation control by fluidic vortex amplifier control. The development of such a device will be of importance to chemical, biotechnology, nuclear research, and manufacturing activities which deal with substances which must be strictly isolated from the environment in order to protect plant and public safety.